ITR: Collaborative Research: Optimization of Systems Governed by Partial Differential Equations

This award addresses an important fundamental problem in computational mathematics: how to optimize complex systems described by partial differential equations (PDEs). The focus is on PDE simulations that can scale into millions of variables, and hundreds or thousands of processors. The size of the problems and the complexity of the techniques for solving these PDEs pose major challenges to modern optimization methods. The project uses a general framework for solving optimization problems in interaction with PDE solvers.